SGER: Collaborative Research: Secure and Auditable Privacy Contracts

Proposal Number: 0751069
PI: Bulent Yener
Institution: Rensselaer Polytechnic Institute

Proposal Number: 0751095
PI: Aggelos Kiayias
Institution: University of Connecticut

Title: SGER: Collaborative Research: Secure and Auditable Privacy Contracts

Proposal Abstract

One of the major challenges imposed by the pervasiveness of
cyberspace is to ensure ``trust'' and design trustworthy systems to
support the critical infrastructure for official, commercial, and
personal business. Millions of everyday users pass their personnel
information over the Internet to their health-care providers, to
their banks, to insurance companies and other service providers.

Once such personnel information is transferred, in many cases, it is
outsourced to other parties (some of which may even reside in
foreign countries) for storage and processing. It may be sold or
resold for data mining.

The collection, processing and resale of private data is a
multi-million dollar industry that has serious security and privacy
breaches including inadvertently revealing or loosing the
personal information of thousands or millions of people.

While there is a clear need for knowledge discovery for commercial
(e.g., marketing, insurance design), scientific and even security
reasons (e.g., identifying public health problem outbreaks such as
epidemics, biological warfare instances), at present, ``data
producers'' (i.e., users like all of us) have no control of who,
how, and what exactly is done with such private and sensitive data.

This proposal considers the above fundamental problem by introducing
a novel mechanism called secure and auditable privacy
contracting (SAP-Contracting). An SAP-Contract can be used to
define a tradeoff between level of privacy and amount of data
mining. Such a tradeoff can be negotiated and customized between
data sources and data miners. An SAP-Contract defines precisely the
functions and permitions that can be performed in personnel records.
It aims to bridge the need for privacy with the need for data
collection, transfer, marketing and processing; thus, enable
sensitive private data to be treated as a commodity.

SAP-Contracting is different from the current state of art such as
privacy preserving data mining approaches since it does not rely on
server based data hiding. It complements and benefits from the
research on cryptographic databases.

The PIs propose to design, implement and test a prototype of this
paradigm to establish a proof of a concept and show provable
security properties of SAP-Contracts, including
confidentiality, integrity, and auditability.

If successful this project will provide provable and auditable
privacy. It will marry privacy and data mining research with
different economical models and venture into new research areas.